Mathematical Theory and Numerical Methods for Microscale Biomedical Devices

The Investigator and his colleagues study new active
materials and their possible use in micro-electro-mechanical
systems (MEMS) for biomedical applications. The research project
is motivated by the biomedical revolution based on the use of
emerging materials and emerging mathematical methods of analysis
and simulation for applications to noninvasive surgery and drug
delivery at nanoscale to milliscale. The work concerns the use of
small scale actuators based on smart materials, especially
shape-memory and magnetostrictive materials. They study the
growth of tissue on materials and the interactions with
surrounding tissue and biological fluids, as well as novel
designs of actuator systems. They consider remote actuation
based on the use of a magnetic field applied external to the
body, and they explore the possible use of MRI.
New active materials --- materials that can change shape
under moderate stimuli, for example --- hold great promise for
building MEMS (micro-electro-mechanical systems) for a variety of
applications. Opportunities in biomedical applications are
particularly intriguing; they include noninvasive surgery and
drug delivery at nanoscale to milliscale lengths. This project is
aimed at biomedical MEMS based on the use of new active
materials. The investigators study the properties of active
materials, the behaviors of MEMS that could be built with them,
and the interactions between the materials and surrounding
biological tissues and fluids. The work requires new mathematical
methods of analysis and simulation. Investigators focus on the
use of small scale actuators based on shape-memory and emerging
ferromagnetic shape-memory materials, energized by a remotely
applied magnetic field. They study the growth of tissue on the
materials and materials interactions with the elastoviscous
surrounding tissue, as well as novel designs of actuator systems
based on molecular beam epitaxial growth of films. The use of
MRI for simultaneous imaging and actuation is explored.